A Versatile 10-Meter Coring Tool for Precision Coring in Deep Water

This instrumentation development project will develop new hardware for enhancing and modifying a Mackereth coring device for use in water depth from 20 to 6,000 meters. The design will allow recovery of large diameter (12.7cm), precisely oriented, and undisturbed 10-meter sediment cores. The new deep-water corer will have significant advantages over presently used piston corers and will have application in a variety of ocean science research applications.